Conference: Reproducibility in Materials Science

Non-technical Abstract: Materials science is foundational to advances in electronics, energy, catalysis, nanotechnology, quantum information, and biomedical devices. It plays a central role in developing new materials and understanding their behavior at the atomic and mesoscale levels. Ensuring the reproducibility of such work is essential to both scientific progress and real-world applications. This project organizes an in-person conference, along with an online working group, to explore the challenges and opportunities surrounding reproducibility in materials science research. The effort engages an international community, reflecting the collaborative and interdisciplinary nature of the field. The program features a broad group of speakers and participants and helps train undergraduate and graduate students, as well as postdoctoral researchers, in subjects related to reproducibility. Events and sessions designed specifically for students and early-career scientists support their development as thoughtful, rigorous, and ethically minded researchers in materials science.

Technical Abstract: Proposed conference brings together the materials science community to discuss opportunities related to standardized protocols for verifying the reproducibility of published results, especially in areas involving complex experimental systems, advanced synthesis methods, and data-driven approaches. The research team brings together researchers in synthesis, characterization, theory, computation, and device applications to discuss how reproducibility can be defined, standardized, and incentivized. Key topics include real-world examples of replication efforts, strategies to identify irreproducible research, best practices for encouraging and recognizing work that reproduces or critically evaluates prior findings, and venues for publishing replication studies. Additional discussions examine open data and code sharing, reproducibility challenges associated with artificial intelligence and machine learning methods, and the development of community norms that reward rigor and transparency alongside novelty. Through the conference and working-group activities, the project develops recommendations and community resources that promote reproducible research practices in materials science.